Mathematical Applications in the Modern World: A Math Modeling Alternative to Precalculus

The project is developing materials for a course in mathematical applications as a modern alternative to existing precalculus and related courses. The course is an introduction to mathematical models at the precalculus level and is a counterpart to the mathematical modeling course offered to upper division mathematics majors. The models developed in the course are primarily based on discrete mathematical topics such as difference equations, systems of linear equations, networks and probability. It involves a considerable degree of computer and/or graphing calculator work to explore the implementation of most of the mathematical models. It also involves a variety of live classroom experiments to investigate the accuracy of the mathematics in predicting the results of actual processes or to help develop mathematical models based on observed experimental data. The course features a series of student investigations to provide a real life dimension and provides students with the motivation and impetus to continue on in mathematically related fields by exposing them to the wide applicability of mathematics.